Calcium and Growth Control in Fibroblasts

Using digital imaging technology the PI will investigate the relationship of changes in intracellular calcium distribution and pH to early gene expression and development in fibroblast cells. The project will have considerable impact on the field of growth regulation.